RAPID: COVID-19 and Perceptions of Electoral Integrity

Concerns regarding election fraud and election manipulation associated with the substantial expansion of voting by mail in the 2020 elections due to COVID-19 may threaten citizens’ trust in American election outcomes and the electoral system. This study provides insights into public beliefs about voter fraud related to mail-in voting and the effectiveness of new information provided through social media and media outlets. The study also assesses how people’s beliefs and experiences with COVID-19 are related to their perceptions of electoral integrity.

The study collects behavioral and survey data from Americans in a multi-wave nationally representative survey. The panel survey design compares the accuracy of citizens’ factual beliefs about the prevalence of voter fraud between late summer 2020 and two survey waves conducted immediately following the election in November 2020 and just prior to the presidential inauguration in January 2021. The second wave includes an experiment evaluating the effectiveness of corrective information from the media. The study assesses the information people encounter online about the election by analyzing behavioral data from respondents using human-coded and machine learning approaches.